Comparative and Developmental Analysis of Surface Domains

9404894 Bouck In many cells, the correct assembly of the membrane skeleton is necessary for cell stability, targeting of proteins and generating functional surface domains. In this project, the regulation and assembly of membrane skeletal proteins are addressed in the model unicell, Euglena, in which whole cell form, shape changes, surface growth and possibly surface motility can all be assigned to a peripheral membrane skeleton. Two subprojects are outlined that consider the general problems of regulation and assembly of this membrane skeletal complex. 1. The key protein IP39 binds skeletal proteins to the membrane and is both phosphorylated and has protein kinase activity. The substrates for IP39 and the protein kinases that phosphorylate IP39 will be identified and characterized biochemically. Genomic clones that encode IP39 will be sequenced to identify potential upstream regulatory motifs, and potential splicing sites identified by comparison with cDNA clones. Full length cDNAs will be developed from the partial cDNA clones by PCR using degenerate primers derived from direct protein sequencing and from internal primers determined from the cDNA sequence. The effects of endogenous phosphorylation and dephosphorylation on IP39 will be tested with direct membrane binding assays and with gel overlays. Sites of phosphorylation of IP39 will be determined by amino acid analysis and from signature sequences determined from the cDNAs .. Endogenous protein kinases that phosphorylate IP39 will also be identified by selective enrichment of surface fractions. 2. The interactions and functions of three stable microtubules associated with the membrane skeleton will be addressed by assaying for posttranslational modification of tubulin using both an epitope library and by specific incorporation of labeled precursors such as acetate. Efforts to identify proteins that bind both to the microtubules and to IP39 will also be carried out in order to test the hypo thesis that microtubules may direct the membrane distribution of IP39. From these studies we anticipate that the mechanisms for the formation of a membrane skeleton, the generation of cell form and the creation of regional surface domains will be substantially clarified. %%% The single-celled organism, Euglena gracilis, has a defined cell shape, with distinctly differentiated regions at various parts of the cell surface, which is maintained by a structural array at the cell membrane, called the membrane skeleton, that confers a semi-rigidity to the membrane. This laboratory has been investigating the detailed biochemical structure of this complex structural array, in order to understand its organization and function. The lessons learned from Euglena about maintenance of cell shape and maintenance of distinct specific surface domains can shed light on how cell shape and regional surface domains are maintained in a wide variety of cell types, ranging from other protozoa (both harmless, free-living species and pathogenic, parasitic ones) to cells in animal tissues. This research will contribute fundamental information to the knowledge base of cell biology about how cells are organized. ***